Primate Evolution in Madagascar: Phylogeny, Function and Development (Anthropology)

This research is an outgrowth of recent paleontological expeditions to Madagascar. The research include: (1) Functional anatomy of extinct lemurs, encompassing descriptions and functional interpretations of previously unknown carpal and pedal materials, vertebrae, and pelves. The goals are reconstruction of positional behavior of extinct lemurs, description of new species, and analysis of patterns of long bone structural adaptation. (2) Lemur evolutionary ontogeny. Indroids (including the giant extinct forms) have patterns of dental and somatic growth that are exceedingly unusual for primates. Available ontogenetic series will be examined and compared, using new analytical strategies. (3) Geographic variation, sexual variation and phylogeny of lemurs. A multivariate analysis of subfossil lemur skeletal variation will be conducted and a taxonomic revision of the lemurs will be undertaken, including phenetic and cladistic treatments of characters previously studied only among extant lemurs. Interactive activities include a course on "The Evolution of Ontogeny" and a graduate seminar designed according to student needs on topics such as: problems in allometry, mathematical modelling in evolutionary biology, sexual dimorphism, the evolution and extinction of Malagasy primates. In addition, guest lectures will be offered with special emphasis on subfossil lemurs.